Orientation and Function in Self-Organized Protein Films

This project, jointly supported by the Division of Chemistry, the Division of Molecular and Cellular Biosciences, and the Division of Biological Instrumentation and Resources, addresses two hypotheses. First, that a highly orientationally ordered, functional protein film can be self-organized by adsorption at a highly ordered liquid/solid interface and that the orientational order of this film can be controlled by changing the nature of this interface, and second, that biochemical function in a protein film is dependent on macroscopic orientational order. The objective of this study is to provide a more detailed understanding of protein films for applications in biosensing and bioseparations devices. During the tenure of this thirty-four month continuing grant, Professor Saavedra, a chemist, and Dr. Li, an optical scientist, will cooperatively apply polarized reflection spectroscopies, namely planar integrated optical waveguide-attenuated total reflection (IOW-ATR) and total internal reflection fluorescence (TIRF), to the in situ characterization of the structure and function of cytochrome c and myoglobin films at the solid-liquid interface. This research addresses both the preparation of ordered, functional protein films and the development of analytical techniques appropriate to characterize these films. The successful development of a general methodology to self-organize proteins into oriented two-dimensional arrays would be highly useful for biotechnological applications. Also, this research should give rise to a clearer understanding of relationships between the structure of hydrated protein films and their macroscopic properties which should aid in protein film design and applications.